POWRE: Exploring Tangible Interfaces

EIA-0074952
Ryall, Kathleen
University of Virginia

POWRE: Exploring Tangible Interfaces

The proposed research is a pilot study into the area of tangible user interfaces. Its broad goal is to prepare the PI to redirect her research efforts into this forward moving area. The PI will be spending two-months at an industrial lab, A Mitsubishi Electrical Research Laboratory. She will also formulate a small-scale flow-on research project in the area of tangible interfaces to pursue back at her home institution that will incorporate a graduate student. The PI's second activity will be to design a new course on tangible user interfaces at her home institution.